Nonlinear Problems in Geometry

Abstract

Award: DMS-0072242
Principal Investigator: Joel Spruck

The principal investigator proposes to study a number of
classical problems in Riemannian geometry that are related in
that they may be described by, or have a strong connection with,
fully nonlinear elliptic equations such as Monge-Ampere equations
or mean curvature equations in some novel way. These include
extensions of the classical sharp isoperimetric inequality to
negatively curved Riemannian manifolds, hypersurfaces of constant
mean curvature in hyperbolic space with prescribed boundary at
infinity, and the problem of deciding if any local Riemannian
metric can be realized by an embedding into Euclidean three
dimensional space. This last problem is interesting not only for
its geometric content but also for important concrete problems in
computer vision.

Our research is motivated by concrete geometric and physical
problems that are of basic interest to pure and applied
scientists. What are the basic geometric design principles
(variational principles) that govern the structure of the protein
in our genes and can we find a fast computational algorithm to
predict this structure. How can we make better color computer
screens and smart cameras. These questions and numerous others
depend upon a deep understanding of the geometry of surfaces and
the complicated nonlinear equations that describe how they twist
and turn and move about in space. The effective solution of these
problems involves the study of geometry, partial differential
equations and high speed computation.